NSFNET Connectivity for Teaching Institutions in the States of Delaware, New Jersey, New York, Massachusetts and Pennsylvania

9318879 Heker Consistent with the mission of the JVNCnet which is to support the academic and research networking communities in the Northeast and in order to facilitate the provision of networking services to these institutions, Global Enterprise Services is requesting partial support for the addition of 8 predominantly undergraduate institutions to the NSFNET family of networks through the JVNCnet midlevel network. Each institution has separately included information regarding their facility and their need to be a member of the NSFNET. The list of schools includes: Burlington County College - NJ(2yr), Mercer County College - NJ(2yr), Felician College - NJ, Gordon- Conwell Seminary - MA, Gordon College - MA, Mercy College - NY, Wesley College - DE, Cedar Crest College - PA. These eight institutions participating in this proposal represent the diversity of the educational system in the United States. Schools range from two-year to four-year institutions, from primarily teaching facilities to research environments, and from small to large student bodies. All share the desire to gain access to the resources and people made reachable through the NSFNET, with the goal of improving the quality of their educational offerings and outreach to their communities. Global Enterprise Services will act as a regional or mid-level agent (JVNCnet) to identify the networking needs and assist the academic institutions in the northeastern United States to meet those needs by providing connectivity, education and training. In addition, the JVNCnet is working towards achieving financial self-sufficiency by increasing its membership.